Doctoral Dissertation Research in Sociology

This project investigates the developmental course of social action groups. It tests propositions from classical social theory about the natural course of development from spontaneous and relatively unorganized groups to bureaucratic organizations with rules and defined official responsibilities. PIs sent questionnaires to about 370 such organizations active in 1986, and plan to interview their leaders and analyze printed material in the course of this research. Results will help establish whether the predicted bureaucratization is universal or whether certain conditions modify its course.